III-COR: Collaborative Classification of Large, Growing Collections with Evolving Facets

IIS - 0713290
Wu, Harris
Old Dominion University Research Foundation
III-COR ollaborative Classification of Large, Growing Collections

This proposal addresses the problem of exploring large digital collections or primarily non-textual content to make them more useable and useful, by allowing users to collectively develop a faceted classification system and then to populate the schema (system). The proposal seeks to implement this collaborative classification system on a subset of the federated US Government Photographs and Multimedia Collection, and then to perform a series of comprehensive evaluation activities that look at various indicators of success for the project. The primary contributions of the project are expected to be new user interfaces, open source tools, algorithms and schemes for automated classification. These resources will be made available for use by others.